NER: Designing Nanostructured Heterogeneous Catalysts to Exploit Mass Transfer Enhancement Caused by Macroscale Hydrodynamic Disturbances

Abstract
CTS-0102911
Mark McCready, University of Notre Dame

This proposal was received in response to NSE, NSF 00-119. The aim of the proposal is to develop nanostructured catalysts for gas-liquid reactions, which have a system of macro-pores designed to take advantage of oscillatory convection that can be created by large-scale hydrodynamic disturbances. It is expected that the efficiency of the reactor would be improved by such a combination.